Thermal Processes in Optical Materials Fabrication: Aerosol Doping

The research objective is to improve the fabrication of optical fibers (waveguides), by using aerosol doping. The proposed method involves the transport and evaporation of an aerosol of solution droplets in the MCVD (Modified Chemical Vapor Deposition) and OVD (Outside Vapor Deposition) techniques. The focus of this research is on the experimental fluid mechanics and heat transfer aspects. The novelty of the proposal consists in the way in which the mist is created by an ultrasonic nebulizer and transported to the deposition surface. This work will be done in collaboration with the modelling effort carried out at Northeastern University. The new techniques for the doping of non-volatile dopants into optical fibers have particular relevance to the fabrication of fiber laser amplifiers for telecommunications purposes. Two graduate students will be prepared in this area with a shortage of specialists.